Clustering Link Data - Theory and Algortithms

Many domains of human activity are characterized by directed graphs:
interactions in social networks, citation networks, hyperlinked
domains like the web, trade relations between companies, patterns of
air travel. Clustering is a general technique to discover global
structure in such networks of local interactions. Presently, networks
with asymmetric relations are first symmetrized then clustered by
methods applicable to undirected graphs. This proposal shows that
symmetrization often loses the information about structure and propose
to develop a theoretical framework and algorithms for clustering of
directed networks. I will approach the task using the random walks
view that I developed and which has proved successful at clustering in
undirected graphs.